Densification and Oxidation Protection of Carbon-Carbon Composites Using the Technique of Chemical Vapor Deposition

Carbon-carbon composites tend to be weak, since they contain cracks and pores, and oxidize rapidly at elevated temperatures. This research project uses a variation of chemical vapor deposition (CVD) to produce an oxidation resistant layer. The method involves maintaining the inital composite in a thermal gradient while time varying the constitution of the reacting gas in such a way as to periodically gasify the pores near the surface while simultaneously depositing carbon on the internal cavities. A similar technique will be used to produce graded surface coatings of mixed oxides and carbides from Si, Hf, Zr, and Ta. Carbon fiber reinforced carbon matrix composites are attractive materials for high strength, light weight structural applications. Characteristics such as high heat of ablation, good thermal shrink resistance and chemical inertness result in a material that offers high performance in extreme thermal and chemical environments (e.g., disk brakes, space structures, jet engine parts, medical protheses, chemical plants, and heat exchangers). Carbon-carbon composites tend to be weak due to the presence of pores and cracks, and oxidize rapidly at elevated temperature. This project will address some of the weakness of this material by a novel processing technique.